Feature-Based Manufacturing Evaluation Using Statistical Process Control Information

9300253 Henderson The increasing demand for high-quality, diversified products is requiring the design engineer to deliver new and better designs faster and cheaper. Central to this goal is the need to evaluate the manufacturability of proposed design features during the design process. Although researchers have begun work in evaluation designs, many important links between the design and manufacturing process remain undeveloped. This interdisciplinary research addresses the following goals: (1) a feedback system that provides designers with understandable redesign help based on manufacturing considerations, (2) a legitimate, pragmatic way of converting a design-related product model into an appropriate manufacturing- related, feature-based model used for manufacturing evaluation, (3) a parochial factory model and key knowledge-based assistants to match features with factory capability, (4) algorithms for forecasting the statistical process performance for proposed product features and manufacturing processes, and (5) a manufacturing evaluation methodology that incorporates statistical process performance, time and cost. This research improves the concurrent engineering environment by providing fast, efficient help to the designer. The system evaluates a product for manufacturability and feed back information to the designer in terms of the original design variables that may cause problems in cost and quality.